SBIR Phase I: Fluidics Design for Development of a Massively Parallel Oligonucleotide Synthesizer (MPOS) for the Production of Genome Scale Reagent Sets in Pico-Molar Quantities

This Small Business Innovation Research (SBIR) Phase I project will develop a liquid handling and robotic system for the generation and dispensing of oligonucleotides .

The commercial application of this project will be to provide cheap and efficient instrumentation for molecular biology research.